Polymer-Based Optical Data Bus for High Speed Data Acquisition Systems

Physical Optics Corporation (POC) proposes to develop a polymer- based optical data bus for high-speed interconnections for use in data processing and physical measurement systems. The proposed concept will provide an optical data bus (ODB) compatible with widely used module interconnection standar-li (e.g. CAMAC, FASTBUS, VMEbus) while improving communication speed and parallelity. In this program, we propose the use of a high- speed polymer-based ODB for chip-to-chip, intramodule and module- to-module interconnection. The two-dimensional tunability of the refractive index of the polymer microstructure provides the capability to make a microstructured channel waveguide on any substrate of interest. This characteristic provides an easy means of constructing optical backplanes and printed ODB boards for system-wide communication. Furthermore, the host material can be used to introduce nonlinear optical moiety in a guest/host polymer system for the highly parallel processing needed for FASTBUS interconnections. The proposed polymer ODB should be immune to EMI and nuclear radiation. As a result, radiation hardness should be expected. In Phases I, POC will demonstrate a board-to-board ODB system through a backplane. It will have speed and communication distances beyond any conventional electronic system-wide interconnections.